Tactile Feedback Output Device for Scanning Tunneling Microscope

This work is to make available a multiple-stimulator tactile array device mounted on a mouse. This device will provide a capability for the finger to sense patterns, texture or variations in the surface of an image. It is designed specifically to provide tactile perception of surface texture in images derived from a scanning tunneling electron microscope (STM). The electrical potentials generated by the scanning tip of an STM are translated into multiple-colored pictures portraying surface geometry. This device will augment visual output to enable multi-sensory perception in STM and it will be useful in many other human-computer interacton environments.